Research and Education in Physical Mathematics

Brenner
DMS-00907985

This award is funded under the American Recovery and
Reinvestment Act of 2009 (Public Law 111-5). The investigator
and his colleagues study a range of problems in applied
mathematics, focusing on the coupling of the analytical methods
to numerical computation, in the context of both research and
education. The proposed research projects address a range of
problems in engineering and science using a combination of
approximate analysis, computation, and experiments. The specific
projects include (1) a search for potentially unstable singular
solutions of the Euler equation, by focusing on initial data
consisting of vortex filaments; (2) questions in microfluid
mechanics, including developing novel methodologies for creating
thin polymeric fibers, and creating a biomimetic analogue of a
fungal spore shooter; (3) biological questions, primarily aimed
at using theory and data analysis to understand morphological
variation in Darwin's Finches. Educational activities center
around the general issue of how the concepts of applied
mathematics should be taught, given the prevalence of
computation. Two specific initiatives are undertaken: The first
involves a wiki-based method for teaching applied mathematics and
developing applied mathematics texts; the second involves the
development of materials for explaining to broad audiences the
ways in which mathematics is used and has been used to impact our
world.

The activities of this project use mathematics and
mathematical ideas to study, and hopefully solve, problems with
broad impact on the world in which we live. One set of topics
involves basic unsolved questions about the nature of fluid
flows. Fluid flows occur throughout engineering and the
sciences, and understanding how to predict their properties is
critical for critical societal problems and needs, such as
energy, environment materials, and engineering. The project
develops methods for using fluid flows to create novel materials
and material processes. Another part of the project aims to
understand a fundamental question in biology, namely, what is the
logic behind which biological processes lead complex organisms,
such as ourselves, to develop and grow? This part of the project
is based on a discovery of the investigator and his colleagues
that quantitatively explains the morphological diversity of
Darwin's Finches, the classical example of adaptive radiation --
the process in which a single species gives rise to multiple
species that exploit different ecological niches. The
investigator extends this work to other bird species and uses the
insights gained to create a mathematical framework for
understanding development more broadly. Finally, central to the
project is the educational mission of teaching undergraduates,
graduate students and postdoctoral fellows how to effectively
apply mathematics so that it can make a substantive difference in
our world.